Foreign Affairs Administrative Support (FAAS) Costs for FY 1991

This is an interagency agreement between NSF and the Department of State (DOS) to reimburse for the cost of administrative services provided to NSF staff stationed in Tokyo, Japan (NSF/Tokyo Office) and Paris, France (NSF/Europe Office). These costs are a necessary part of NSF's overseas activities.